Vertical Integral of the Research and Educational Activities in Mathematics at the University of Georgia

Proposal Number: DMS 0089927
Project Title: Vertical Integration of the Research and Educational
Activities in Mathematics at the University of Georgia

Abstract
This project will capitalize on the traditional strengths of the
University of Georgia's Mathematics Department and take advantage of recent
improvements and innovations to vertically integrate the activities of
faculty, postdoctoral fellows, graduate students and undergraduates. These
groups will meet in teams centered around specially designed VIGRE seminars
and programs. The half-a-dozen disciplinary VIGRE seminars will be
complemented by a broadly focused "Mathematics of Computation" seminar
which will expose participants to many areas of mathematics from a
computational focus.
The 4 postdoctoral fellows will be given time to enhance and broaden their
research programs working with an appropriate faculty member, while
upgrading their teaching and communication skills. The 10 graduate
traineeships are designed to produce, in five years, well-qualified new
doctorates, with significant experience in the classroom, and a broad view
of available career options. Appropriate undergraduates will get a first
exposure of research by participating in a VIGRE seminar, while selected
freshmen and sophomores will be encouraged by a summer research experience
to major in mathematics. The department's traditions of dedication to
undergraduates, careful stewardship of graduate students and mentoring of
postdoctoral fellows, provide a natural environment for VIGRE activity.